Workshop: Young Investigator Symposium at The Workshop on Steroid Hormones and Brain Function, April 4-7, 2000, Breckenridge, CO

This award enables young scientists to attend the Workshop on Steroid Hormones and Brain Function and give a talk in a section designed for promising new scientists, the Young Investigator Symposium. The Workshop on Steroid Hormones and Brain Function is a forum in which state-of-the-art concepts and technologies are discussed among neuroendocrinologists. The workshop has been in existence for 7 years and the National Science Foundation has funded the Young Investigator Symposium during the last 5 years. Since the number of participants is limited to approximately 100, it provides a venue for investigators to present their data in an informal atmosphere and fosters interactions among participants, especially between young and established investigators. The experience and exposure gained by the new investigators attending the meeting can facilitate the establishment of future collaborations and can broaden their scientific perspective of the field.